I-Corps: Highly-Accurate Chemical Simulations for the Energy Storage Industry

The broader impacts/commercial potential of this I-Corps project is to improve design and processes in industries such as energy storage, battery technology, quantum computing, memory storage, and pharmaceuticals, as well as military defense, through simulation. Simulating chemical processes with computer software is vital for improved designs and processes in industries ranging from energy storage to pharmaceuticals. The accurate verification, refinement, and prediction of states of matter is particularly advantageous for improving the design and manufacturing of new and renewable materials. Using quantum information in highly accurate simulations will disrupt these industries and become the new standard in chemical computational software.

This I-Corps project aims to solve out-of-reach energy and chemistry problems with highly-accurate simulations. Simulating chemical processes with computer software is vital for improved designs and processes in industries ranging from energy storage to pharmaceuticals. Highly-accurate simulations have been uniquely limited in the prediction of states due to the extensively adopted and utilized Born-Oppenheimer approximation (BOA) of the 1920s. The core of the innovation does not assume the historically necessary BOA and exploits the effectiveness and predictive power of all-particle correlation by using explicitly correlated Gaussian functions in conjunction with the well-known Rayleigh-Ritz variational theorem to describe chemical phenomena. The proposed technology leverages specialized basis functions that include non-zero angular momentum state functions through the use of spherical harmonics, including complex parameters. The proposed QLEAN™ (Quantum Learned Electrons and Nuclei) simulation method provides a scaling solution that uniquely reduces the exponential growth rate dependence on the number (n) of identical particles, also known as the factorial dependence, to a factor of n-squared, making quantum based simulations possible. The I-Corps program will enable the team to discover the market interest in this simulations program.